REU Site: Earth and Sky Research

This project will provide undergraduate students with hands-on research opportunities in a variety of scientific disciplines. Students from across the United States will be selected to participate in intensive research projects, working closely with faculty and researchers who offer mentorship and guidance. Students will gain valuable scientific skills, professional networks, and career exploration, strengthening the workforce of outstanding scientists and engineers.

This REU site focuses on atmospheric and geographic sciences and provides a unique opportunity to participate in meaningful research projects with mentors in both a university and national science laboratory setting. The students will develop skills in scientific analysis and science communication through independent research projects and collaboration within a cohort of researchers. These experiences will prepare students for the workforce and provide them with the tools to address current and future severe weather and other challenges at the intersection of atmospheric and geographic sciences.